Northern California Rural Systemic Initiative

The Northern California Rural Systemic Initiative (NCRSI) is a systemic change
effort undertaken by a consortium of universities, school districts, parents, students,
nonprofit organizations, government agencies and businesses that addresses the
barriers to adequate science, mathematics and technology education in rural Northern
California. Grounded in the belief that effective uses of new technologies to enhance
student learning require new pedagogical skills and curricular content, the consortium
seeks to transform mathematics and science education by introducing comprehensive
changes in pedagogy including instruction and curriculum. NCRSI consists of the
following three core elements:

1. An in-depth self-study of Modoc and Siskiyou counties including the collection of
base-line data on mathematics, science and technology instruction;

2. An innovative preservice and inservice teacher and administrator preparation
model, Guiding Partners, which incorporates mathematics, science, technology
Training and development of constructivist based pedagogy skills centered
Around a concept of project facilitation - the pedagogy will be modeled by
Consortium staff developers and university faculty as they teach it to classroom
Teachers who will practice it with students in K-12 fieldwork;

3. Development of a five year implementation plan based upon the in-depth study of
Mathematics, science and technology instruction - the plan will include specific,
Measurable outcomes, timelines, and designate responsibilities.